Proposal for an REU Site in Hydroscience Research at The University of Iowa's Institute for Hydraulic Research

This REU site is focussed on engineering research in the realm of hydroscience. Research, education, in the gamut of component processed and engineering activities associated with water movement in the hydrologic cycle and behavior of water in its three phased is conducted. The REU site will support ten REU students throughout summer months, with some students continuing their research experience during the academic year. Working within a frame work for participation in research, REU students would choose from a range of projects dealing with fluid mechanics, hydraulics, hydrology/hydrometeorology, and ice (solid water) engineering. The particular aim, and challenge set for each student would be for him/her to undertake a self-contained piece of research within the scope of each project.